REU Site: Research Experiences for Undergraduates in Disinformation Detection and Analytics

This Research Experiences for Undergraduates Site project will engage motivated students in the rapidly growing research area of disinformation detection and analytics. With its focus on identifying disinformation, this program will broaden the views of the students, providing them with a holistic and in-depth understanding of disinformation and its viral spread across the Web. They will leverage knowledge and skills learned to discern and debunk disinformation, which could aid their families, friends, and social media contacts and eventually help prevent disinformation from spreading. Their knowledge and skills will not only prepare students for disinformation-related jobs in research or industry, it will encourage them to pursue graduate study and research in general. This program will also contribute to the development of a diverse, globally competitive workforce by providing research and education opportunities to an economically diverse group of students, including female, underrepresented minorities, first-generation college students, and those from undergraduate institutions who may not have previous exposure to research or graduate school.

Students participating in the REU Site project will learn: (1) The concept of disinformation, its types, examples, and active research topics, (2) Mainstream computational methods to detect disinformation on social media, including how to access, clean, preprocess, and visualize data and how to build analytical and predictive models using open source programming tools, (3) Important metrics to evaluate research results, compare baseline models, and produce preliminary results for publication quality research products, and (4) Essential research skills including brainstorming discussion, programming experiments, forensics, trial-and-error, technical writing, and research presentation. Students will conduct hands-on research on topics of their own choosing that fit within faculty members' existing broad disinformation research programs. The goal of this REU Site is to engage participating students in real-world projects studying disinformation from the perspectives of data analytics, information retrieval, applied machine learning, web archiving, and social computing. The participants will learn essential knowledge and skills to support future careers, whether research or application oriented. Co-funding for this project is being provided by the Secure and Trustworthy Cyberspace (SaTC) program and the Cybercorps/Scholarship for Service (SFS) program in recognition of the alignment of this project with the goals of these two programs.